Mathematical Sciences: 1989 Gordon Conference: Statistics inChemistry and Chemical Engineering; July 31-August 4, 1989; New Hampton, New Hampshire

This project partially supports the domestic travel of participants attending the 1989 Gordon Research Conference on Statistics in Chemistry and Chemical Engineering. The Gordon Research Conference Special Fund provides most of the costs of the meeting. The conference provides an opportunity for the exchange of new ideas among researchers in statistics, chemistry, chemical engineering and the life sciences. Participants will come from academia, government and industry. The topics will include, among others, design and analysis of computer experiments in chemistry and chemical engineering as well inference and design for spatial data.